SYMPOSIUM: Workshop at National Science Foundation on Amphibian Population Dynamics: Is the Threat of Exinction Increasing for Amphibians? Date to be announced.

Collins 9807967 This workshop will examine the apparent causes of global decline of amphibian populations. Participants will examine declines from endocrinogical, immunological, and environmental perspectives. Participants will represent the United States, Europe, Central America, and Australia. The goal of the workshop will be to determine how research on amphibian decline can be more integrated and provide more generic answers.